CSR: Small:Conductor: A Run-Time System for Exascale Computing

One of the critical problems---if not the critical problem---in
reaching the exascale computing goal by the end of the decade is the
power problem. Exascale systems have a target power constraint of 20
megawatts even though today's petascale systems---which have
performance at least two orders of magnitude below prospective
exascale systems---generally consume around 5 megawatts. Hardware
improvements alone will not bridge this gap.

The PI is developing a run-time system called Conductor to address the
power issue. The overall goal of Conductor is to produce near-optimal
application performance under a prescribed power bound. Conductor
carries this out by allocating power both between and within nodes.
First, the PI is designing and implementing a new technique called
power scheduling, which addresses the inter-node case. The second
part of Conductor addresses the intra-node case with power gating,
which allows powering off of individual components in a more
fine-grain manner than is generally available in architectures today.
Finally, the PI is investigating techniques to allow users to assist
Conductor, through annotations, in achieving high performance in cases
where power scheduling and power gating alone are not sufficient.

The impact of the research described in this proposal is significant.
Conductor is essential to achieving exascale performance on nontrivial
applications, and it will help push towards the exascale goal.
Achieving exascale performance is an important national priority and
will impact many application domains. The PI is also integrating the
research ideas into both undergraduate and graduate parallel and
distributed computing courses.